Acquisition of a High-Sensitivity 40Ar/39Ar Dating System for the University of Alaska Fairbanks

This award will provide one-half the funding needed for the acquisition of a high sensitivity noble gas mass spectrometer to be installed and operated in the Geophysical Institute at the University of Alaska-Fairbanks. The University is committed to providing the remaining funds necessary. The mass spectrometer will be used primarily in the application of the argon-40/argon-39 isotopic method of dating rocks and minerals in a variety of research projects including the timing of ore-mineralization, dating of Alaskan Quaternary volcanic sequences, the study of very old continental crust evolution, and the study of the retention of argon in minerals.